Travel Support for the 21st International Union of Pure and Applied Physics (IUPAP) Triennial Conference on Thermodynamics and Statistical Physics; Cancun, Mexico; 7/15-20/01

0100894
Stanley
This award provides travel support for young investigators to attend the 21st International Union of Pure and Applied Physics Triennial Conference on Thermodynamics and Statistical Physics (Statphys-21) to be held in Cancun, Mexico, on July 15-20, 2001. The award is co-funded by the Divisions of Materials Research, Mathematical Sciences, Chemistry, Physics and the Office of Multidisciplinary Activities in MPS. The International Division is also providing support.
%%%
This award provides travel support for young investigators to attend the 21st International Union of Pure and Applied Physics Triennial Conference on Thermodynamics and Statistical Physics (Statphys-21) to be held in Cancun, Mexico, on July 15-20, 2001. The award is co-funded by the Divisions of Materials Research, Mathematical Sciences, Chemistry, Physics and the Office of Multidisciplinary Activities in MPS. The International Division is also providing support.
***